A Proposal for Research in Testing

The main goal of the research is to construct a theory of testing that leads to provable statements about programs. This theory shows that testing can "prove" that certain programs are error-free. The class of programs that this theory applies to includes a number of important programs. However, the theory does not provide absolute correctness. It does prove that a computation is correct with a certain probability. Since this probability can be made as close to l as desired, this suffices for practical purposes. It is important to note that this probability is not an empirical statement: it is a rigorous statement about mathematics.